University - Industry Cooperative Research Programs in the Mathematical Sciences: Graduate Research Assistantships in Industrial Mathematics

9508663 Corliss The University-Industry Cooperative Research Programs in the Mathematical Sciences are programs designed to establish a mechanism for exchange of mathematiaal scientists between academia and industry at different stages of their careers. These programs will strengthen the links between industry and academia and identify and encourage new avenues of research in the mathematical sciences. The University-Based Graduate Research Assistantships provide the opportunity for graduate students to spend part of their time in the classroom and part of their time in an industrial setting. These awards are a means of contributing to the future vitality of the scientific effort of the nation. Almost all systems of interest in a corporation involve many interconnected systems and subsystems that impact the performance of the enterprise. The purpose of one part of this research is to investigate the area of Hierarchical Modeling and Architectures and build a tool kit of models that will combine the best features of analytical queuing theory methodology; the new paradigms of object-oriented programming techniques such as C++; advanced dynamic systems concepts; and advanced operations research methods. A second area of research is a study of how to manage information on a global basis to better understand consumers worldwide. This will be done by working with a database established to facilitate learning from research through cross-country and within-category analysis of consumer test results.